Collaborative Research: Mantle Electromagnetic and Tomography Experiment: Construction of EM Instrumentation

ABSTRACT: 9300141, PI-Filloux: This project will construct 10 electrometers and 15 magnetometers to used in the RIDGE mantle melt experiment to be conducted on the East Pacific Rise at 17 south.